Equipment Proposal for Optical Microscopy, Imaging and Image Analysis Shared Resource for the University of Washington Engineered Biomaterials Engineering Research Center

ABSTRACT EEC-9872882 Ratner This equipment award is for the acquisition and assembly of an Optical Microscopy, Imaging and Image Analysis Shared Resource for the ERC for Engineered Biomaterials at the University of Washington. This system will provide for comprehensive modern optical microscopy techniques, digital image acquisition and powerful image analysis geared for the study of cells on biomaterial surfaces. The resource is critically needed to facilitate student instruction and training in the use of important modern scientific tools.